Highly Available Large-Scale Video Server

This project is building and experimenting with a prototype video server, which extends the Stony Brook Video Server (SBVS). Developed over the past two years, SBVS provides an end-to-end performance guarantee for digital video delivery from the server's disk, through multi-hop Ethernet-based networks, to the client's display. The extended server, called Stonehenge, will eventually store lectures for use on all 64 SUNY campuses. Stonehenge has three unique aspects: (1) it provides software tolerance to disk failures, maintaining performance guarantees in the presence of faults; (2) it integrates disk and tape arrays, and includes dynamic striping and load balancing; (3) detailed performance and traffic statistics from the running video server will be collected and analyzed.